Polynomial Invariants in the Theory of Knots

9802859
Kauffman
This project studies problems related to polynomial invariants in knot
theory, particularly for the Jones polynomial and its generalizations via
methods in statistical mechanics, quantum groups and quantum field theory.
A central problem about the Jones polynomial is whether its triviality
implies the triviality of the knot to which it is applied. An affirmative
answer to this question would constitute a breakthrough in our
understanding of the nature of knottedness in three-dimensional space.
Mathematical ideas motivated by physical ideas have succeeded in producing
a medley of invariants of knots, links, and three-manifolds. The
investigator is in the process of extending these ideas to knotted surfaces
in four-dimensional space and to four-dimensional manifolds. Here the
discovery of new invariants would itself constitute a breakthrough in the
study of four dimensions. Such a breakthrough would have implications for
the physics of quantum gravity.
The mathematical study of knots is important not only for its own
sake, but also for its applications to molecular biology and its
relationships with physics and the foundations of mathematics. The
research indicated in this project is linked with these applications and
with the use of both computer graphics and expository writing to enlarge
the discussion of these ideas in both interdisciplinary and educational
contexts. By using computer models of knots, one can study questions such
as how the knot will behave if it is coated with electrical charge
(self-repelling knots), how it will appear if it is tied with a least
amount of rope for a given diameter, how the geometry of the complement
of the knot appears to an observer flying about in it, how DNA molecules
behave when moving in their cellular environment. All these directly
physical questions are, at levels that we do not yet fully understand,
related to the more algebraic methods of the polynomial invariants.
Knots and Nature are inextricably entwined.
***